Improving Expert Elicitation Through Studies of Climate Change and Its Possible Impacts

The science of global climate change and its impacts is dominated by uncertainty. Public policy decisions require near term scientific judgments, since the scientific facts will not be known for years. This study conducts research on the elicitation of expert judgment in the context of the global ecological impacts of climate change. The study generalizes elicitation methods by asking experts to structure the issues, propose a model, and the give judgments about the important parameters of their model. This approach gives the experts more latitude to express their views compared to prior work in expert judgment. A two-stage elicitation process is used to elicit the expert's views about: (1) the structure, the metric(s), and the value of key uncertain coefficients that should be used in framing the problem; (2) the reliability of key findings in their field of expertise and in other fields upon which their work depends (including the reliability of consensus reports); (3) their sensitivity to and ability to identify the potential sources of surprise; and (4) the amount of reduction in uncertainty (in their field of expertise and in other climate change related issues) that could be achieved with various amounts of research investment. These elicitations will help us to define the character of uncertainties dominating climate change issues better, shed light on how the reliability of knowledge and research is gauged within the scientific community, and provide guidance on research allocations.